Non-Perturbative Quantum Gravity

9311465 Rovelli Research in theoretical gravitational physics will be concerned with the use of new variables to describe both classical and quantum phenomena in gravity. These new variables give rise to a great simplification in obtaining solutions to the equations of general relativity, and could lead to a better understanding of quantum gravity. Such an understanding is important in an elucidation of the fundamental forces of nature. ***